New Insights Into Lung Structure and Function Through Acoustic Morphometry

0114538
Suki
The objective of this research is to extract information about the structure and function of the lung from noninvasive acoustic measurements. The specific aims of this research are: (1) to measure sound waves produced during airway opening (crackle sound) and the lung pressure-volume (P-V) curve in normal and surfactant depleted lungs from several species with distinctly different airway geometry, (2) to analyze the airway structure from the crackle sound and the P-V curve and compare it to available morphometric data, and (3) to use airway tree models to predict the relationships between lung mechanics, lung function including Computed Tomography images, and the mechanism of lung injury during mechanical ventilation.